Visual Characterization of I/O System Behavior for High-End Computing

Abstract
Modern supercomputers are complex, hierarchical systems
consisting of huge numbers of cores, systems for disk storage,
and nodes for I/O forwarding. These numbers continue to grow and
the need for tools to understand the behavior of the system
software becomes paramount: without these tools it is impossible
to effectively tune that software, and high degrees of efficiency
is unattainable by applications. This project addresses the
challenge of understanding the behavior of complex system
software on very large-scale compute platforms, like the current
petascale computers. In particular, this project is developing
software infrastructure to provide end-to-end analysis and
visualization of I/O system software. Specifically, the
objectives are to develop, improve, and deploy (1) end-to-end,
scalable tracing integrated into the I/O system (MPI-IO, I/O
forwarding, and file system); (2) information visualization tools
for inspecting traces and extracting knowledge; (3) testing
components that drive this system to generate example patterns,
including a component to generate anomalies; and (4) tutorials
and tools for helping other system software developers
incorporate this analysis and visualization system into their
production software. The software and techniques developed in
this project will be directly applicable to and useful in other
system software libraries which perform complex interactions on
large systems.

For further information see the project web site at the URL:
http://vis.cs.ucdavis.edu/NSF/Jupiter